Research in Experimental Nuclear Physics

This grant supports accelerator-based nuclear physics research by a group of experimentalists located at the University of Wisconsin. Emphasis is on the study of hadronic and weak interactions in few-nucleon systems and in light nuclei, using reactions initiated by intense beams of polarized ions. Examples of experiments under investigation include: beta-decay asymmetry measurements on polarized nuclei produced with these beams, to distinguish Gamov-Teller from Fermi contributions; triton and helion bound state wave function determinations, to test calculations of nuclear three-body bound states; and several experiments addressing parity and charge-symmetry nonconservation in nucleon-nucleon and in light nuclear systems. The work is being carried out at the University of Wisconsin EN tandem accelerator laboratory, the Indiana University Cyclotron Facility, and at the SIN injector cyclotron in Zurich. These experiments explore, in a precise and highly sensitive manner, the interface between the fundamental interactions of physics and the properties of nuclei, nuclear reactions, and nuclear transitions.